Development of Reliable Distributed Protocols

This project focuses on the verification aspect in the development of reliable, fault-tolerant, distributed protocols. High-performance computing technology, such as distributed real- time systems, high-performance memory systems, wide-band I/O systems, modular operating systems, high-speed network interfaces, commodity workstation clusters, and the like, is reliant on an underlying layer of distributed software (often implemented in hardware), which consists of suites of protocols for check-pointing, communication, coordination, data distribution, recovery, and synchronization of distributed components. These protocols provide a critical software layer for high-performance computing systems. Having such a standardized layer is crucial to interoperability, portability,scalability, and reusability of existing software. Unfortunately, developing reliable software for distributed environments is a notoriously difficult task. Here reliability refers to pre-committed real-time performance, dynamic reconfigurability, security, robustness, and high assurance. The difficulty in producing reliable distributed software is twofold. First, designing reliable distributed software is extremely challenging. Not only does the software have to be free from programming errors, but it also has to be resilient against hardware and software faults. Second, because of the nondeterministic behavior of distributed environment, it is very difficult to verify that the software meets its desired specification. The focus of this project is on the study of algorithms and data structures applicable to the verification of programs. It draws upon ideas and results from logic, graph theory, and automata theory, combining both theoretical and experimental aspects. ***